Establishment of Dextrous Robotic Hands and Neural Networks Laboratory for Intelligent Controls Research

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in scientific and engineering research. The program provides support to strengthen the research environments and capabilities of institutions that have substantial minority student enrollments. Eligible institutions must also have graduate programs in science or programs in engineering. Texas A&I University will use RIMI support to establish a laboratory for Intelligent Controls research involving dextrous robotic hands and neural networks. Research studies will focus on robotic systems, automated manufacturing, and machine intelligence. Subprojects will involve: dynamics, sensor, and control issues related to smart (robotic hands for grasping and manipulation); neural networks sensor integration and intelligent control applications; and use of artificial intelligence to analyze flexibility in automated manufacturing cells. This project on intelligent control systems will help meet the research needs of a predominantly minority institution that is striving to increase its research productivity. The principal investigator has a strong background in classical dynamics and controls and in the applications of neural networks. The Foundation has supported this project, in part, because minority students at Texas A&I University will have their research capabilities strengthened by their involvement with state of the art instrumentation for intelligent control research.